The Pierre Auger Observatory Operating Funds Request

The highest-energy particles ever observed in the universe are called ultrahigh-energy cosmic rays (UHECRs). They carry tens of millions of times more energy than the particles produced by the world's most powerful particle accelerators. Despite more than 60 years of research, scientists still do not know exactly where these particles come from or how nature accelerates them to such extreme energies. UHECRs are extremely rare, with fewer than one particle striking a square kilometer of Earth's surface each year. However, they provide a unique opportunity to study physics at energy levels that cannot be reached in any laboratory. Understanding how these particles are accelerated by powerful objects in space, such as exploding stars or active galaxies, will improve our knowledge of fundamental processes involving magnetic fields and turbulent plasmas. These processes are also important in areas such as fusion energy research, including understanding the behavior of the Sun. When UHECRs collide with atoms in Earth's atmosphere, they also create particle interactions that allow scientists to test the laws of physics under conditions that cannot be reproduced on Earth. The Pierre Auger Observatory has shown that UHECRs are atomic nuclei, ranging from light elements to heavy elements such as iron, and possibly even rarer elements like krypton and gold. Determining exactly what these particles are made of and where they come from is essential for understanding how they are produced. This project will improve measurements of their composition and the directions from which they arrive, providing important clues about their sources. UHECRs are also expected to produce extremely high-energy neutrinos, nearly massless particles that travel across the universe with very little interaction. Detecting these neutrinos would provide an entirely new way to study the powerful cosmic environments that generate UHECRs.

The Pierre Auger Observatory (PAO), located in Malargüe, Argentina, is the largest cosmic-ray detector ever built. Developed with strong leadership from the United States, it is operated by an international collaboration involving scientists from 17 countries. Since beginning operations, the observatory has detected hundreds of thousands of ultrahigh-energy cosmic rays, trained many undergraduate students, graduate students, and postdoctoral researchers, and shared its discoveries through a public data program. The observatory recently completed a major upgrade called AugerPrime, which added new detectors and improved electronics to every detector station. These upgrades greatly improve the observatory's ability to determine the type of particle that produced each cosmic ray. This new capability is critical for identifying the sources of UHECRs and understanding how they reach such extraordinary energies. Funding from this award will support the continued operation of the observatory and enable U.S. scientists to fully use its upgraded capabilities.